Homotopy Theory and It's Applications

Mitchell's project has two principal components. The first is a study of
K(1)-local homotopy theory and its applications, including applications
to algebraic K-theory and general linear group homology. The methods
incorporate an Iwasawa theory for K(1)-local spectra. The second
component is an investigation of the topology and geometry of loop
groups and symmetric spaces, including a homology Schubert calculus for
the Pontrjagin ring and questions about stable homotopy type.

Algebraic topology is the branch of geometry that studies qualitative
properties of geometric objects, especially properties that remain
invariant under continuous deformation. Topology has many connections to
other branches of mathematics, and in recent years has appeared with
surprising frequency in the sciences, including physics and even
molecular biology. Mitchell's project is an investigation of intriguing
new connections between algebraic topology, number theory, and the
geometry of Lie groups (groups of transformations of manifolds and other
geometric objects).